Supplement to the Carvalho Catalogue of the Miridae of the World (Insecta: Heteroptera)

The Catalogue of the Miridae of the World, now 34 years old, is the basic reference for students of the plant bugs. It brings together in one place all of the information on the classification and distribution of the 10,000 or so members of this group of true bugs. Because of its age, it does not reflect the many changes in the classification of the group presented in the literature in the last three decades, nor information on the many new species described. Thus, the preparation of a supplement is the most efficient way to bring this invaluable resource up to date. Over the past 15 years the principal investigator has amassed the bibliographic resources necessary for preparation of the supplement, and has laid much of the ground work toward its completion. The final volume will allow access to all literature on the classification of the group, present lists of hosts by predator and host, and--having been prepared using a computer database--can be updated on a periodic basis as well as queried in order to answer more complex questions than would be possible with the printed version of the catalog. This project provides funding for preparation of the supplement, which will be useful to systematists, ecologists, agriculturists and insect pest-control specialists.